Partial Differential Equations and Statistical Mechanics

PI: Joseph G. Conlon, University of Michigan
DMS-0138519

ABSTRACT

This project is concerned with elliptic and parabolic partial differential
equations and their applications in statistical mechanics. The first part of the
proposal is concerned with elliptic and parabolic equations in divergence form
where the coefficients are random variables. The author intends to study the
regularity properties of the expectation value of the Green's function, and the
rate of convergence of the solution of the equation to the solution of the
homogenized equation. The second part of the proposal is concerned with the
application of ideas from the theory of divergence form parabolic equations with
random coefficients to Euclidean field theory. The relationship between elliptic
and parabolic equations with random coefficients and Euclidean field theory was
discovered recently by Helffer and Sjostrand. It was then more fully developed
by Naddaf-Spencer. The author intends to apply some ideas he and Naddaf have
developed for random elliptic equations to the Euclidean field theory situation.
In the third part of the proposal the author proposes to study nondivergence
form elliptic equations with random coefficients, in particular an
equation corresponding to Brownian motion with a random drift. It has been
shown by Sinai that in one dimension diffusion with random drift is strongly
subdiffusive for large time. It has been conjectured that in dimension larger
than 2 the scaling limit of diffusion with random drift is Brownian motion. The
author has found a connection between this conjecture and certain combinatorial
problems concerning the existence of cycles in graphs. He plans to continue his
program to solve these combinatorial problems. The final part of the proposal is
concerned with uniformly elliptic equations with deterministic coefficients.
The coefficients can oscillate arbitrarily rapidly however. The author plans to
continue his work to obtain estimates on the underlying diffusion which are
independent of the degree of oscillation of the coefficients. This part of the
proposal is related to the previous parts since random equations have
coefficients which are rapidly oscillating.
The goal of the proposal is to understand properties of the solution to a
partial differential equation when the only information one has is that the
coefficients of the equation are bounded in some way. Within this goal there
are two sub-themes: (a) understanding worst possible behavior, (b)
understanding "on average" behavior -given our knowledge of the coefficients.
The sub-theme (a) is the subject of the final part of the proposal. It is
intimately related to problems of stochastic control theory. Examples of
stochastic control theory abound in the world of engineering and finance. To
take a financial example, consider the problem of valuing a stock option. The
classic work of Black and Scholes shows that the value of the option depends
only on the stock volatility. For a stock with constant volatility they have a
formula for the value of the option in terms of the volatility. The formula is
the solution to a partial differential equation in which the volatility is a
coefficient. (a) is therefore related to the problem of estimating worst
possible scenarios for option values when one can only assume some bounds on
stock volatility. The sub-theme (b) has similar applications to (a). The most
exciting of these to this author is that it offers a way of beginning to
understand the problem of turbulence in fluids. Turbulence is roughly speaking
the onset of random behavior in the velocity of a fluid. It is well known that
a fluid will undergo turbulent behavior when subject to a sufficiently large
disturbance. The mathematical problem of understanding turbulence is well
defined. One simply needs to understand the solutions of a partial differential
equation known as the Navier-Stokes equation. To date there is not even the
beginnings of an understanding how to derive turbulence in a mathematically
rigorous way out of the Navier-Stokes equation. The reason is that the fluid
velocity is a coefficient of the equation. In the turbulent regime therefore
the Navier-Stokes equation is like a partial differential equation with a
random coefficient. The sub-theme (b) is then concerned with the "typical"
behavior of the fluid velocity in this situation.